NSF Minority Graduate Student Travel Award

This action funds a Minority Student Travel Award for a visit to the Institute for Tropical Ecosystem Studies at the University of Puerto Rico in Rio Piedras for Jose Colon-Gaus. The purpose of the visit is to select field sites in the Luquillo Experimental Forest LTER and to confer on future research and training objectives for Mr. Colon-Gaud.